Atom Interferometery

This work will exploit recent advances in atomic de Broglie wave interferometry for precise measurements of rotation and for new tests of the Equivalence Principle. The potential impact of Bose-Einstein condensed sources on future precision measurements will be experimentally assessed through application of atomic AC Josephson effects to sensitive and precise measurements of acceleration and h/m (the ratio of Planck's constant to atomic mass), and through the study of squeezed many-body atomic states in the context of achieving statistical sensitivities below the atom shot-noise limit. The dynamic evolution of entangled many-body quantum states will be studied in connection with this latter goal.